Models for the Design of Engineering Tasks Integration

The objective of the research is to investigate the use of analytic methods and results from multiprocessor computing to design the most effective integration structures. The scope of this research will include integration of distributed engineering tasks involving decisions and designs in the areas of distributed product design, production planning and quality assurance. Distribution will be considered within and between plants and under dynamically changing conditions. The research will focus on the theoretical analysis of models for three interrelated integration issues: (1) static and dynamic organizational configurations for the integration; (2) decomposition of engineering problems to tasks that are designed for integration by the above configurations; and (3) suitable classification and an analytic approach to compare integration alternatives that will increase integration effectiveness, including fault-tolerant computer-based integration. To achieve the objective, a multi-disciplinary approach will be used, combining manufacturing engineering, operations research, and computer engineering. The potential of creating significant new knowledge on integration of distributed engineering tasks and influencing its usefulness to American manufacturing is high.